Collaborative Research: Teaching Environmental Sustainability - Model My Watershed

This project will develop curricula for environmental/geoscience disciplines for high-school classrooms. It will teach a systems approach to problem solving through hands-on activities based on local data and issues. This will provide an opportunity for students to act in their communities while engaging in solving problems they find interesting, and require synthesis of prior learning. The Model My Watershed (MMW) v2 app will bring new environmental datasets and geospatial capabilities into the classroom, to provide a cloud-based learning and analysis platform accessible from a web browser on any computer or mobile device, thus overcoming the cost and technical obstacles to integrating Geographic Information System technology in secondary education. It will also integrate new low-cost environmental sensors that allow students to collect and upload their own data and compare them to data visualized on the new MMW v2. This project will transform the ability of teachers throughout the nation to introduce hands-on geospatial analysis activities in the classroom, to explore a wide range of geographic, social, political and environmental concepts and problems beyond the project's specific curricular focus.

The Next Generation Science Standards state that authentic research experiences are necessary to enhance STEM learning. A combination of computational modeling and data collection and analysis will be integrated into this project to address this need. Placing STEM content within a place- and problem-based framework enhances STEM learning. Students, working in groups, will not only design solutions, they will be required to defend them within the application portal through the creation of multimedia products such as videos, articles and web 2.0 presentations. The research plan tests the overall hypothesis that students are much more likely to develop an interest in careers that require systems thinking and/or spatial thinking, such as environmental sciences, if they are provided with problem-based, place-based, hands-on learning experiences using real data, authentic geospatial analysis tools and models, and opportunities to collect their own supporting data. The MMW v2 web app will include a data visualization tool that streams data related to the modeling application. This database will be modified to integrate student data so teachers and students can easily compare their data to data collected by other students and the government and research data. All data will be easily downloadable so that students can increase the use of real data to support the educational exercises. As a complement to the model-based activities, the project partners will design, manufacture, and distribute a low-cost environmental monitoring device, called the Watershed Tracker. This device will allow students to collect real-world data to enhance their understanding of watershed dynamics. Featuring temperature, light, humidity, and soil moisture sensors, the Watershed Tracker will be designed to connect to tablets and smartphones through the audio jack common to all of these devices.